Structure-Property-Composition Relationships in Trialuminide Alloys

9400507 Mikkola This research is aimed at understanding the mechanical properties of cubic forms of trialuminides. The work focuses on various cubic aluminum-titanium-chromium and aluminum-titanium-manganese alloys, though it is expected that the results will be important to the understanding of other alloys having the cubic L12 structure. These chromium and manganese ternary alloys have many desirable properties, but are unusual in that, while they are relatively soft and have little tensile ductility, failing by transgranular fracture. Similar behavior can be found among some other potentially useful intermetallics. The primary thrust of the research is to improve these alloys through additional alloying, based in large part on studies of the micromechanisms of plastic deformation by high resolution transmission electron microscopy. In this approach weak-beam imaging is combined with computer simulation of images and related to the mechanical behavior of the alloys as a function of temperature and composition. It is the intent of this research to define this behavior in the cubic trialiminides, thereby sorting out the wide variety of conflicting ideas and interpretations found in the literature. Specific details of interest include the nature of the superdislocation configurations and dissociation mechanisms and how these change with temperature and composition; and, further, how these changes determine the mechanical properties, including ductility, work hardening rates, and the occurrence of serrated stress-strain behavior. %%% It is expected that this research will lead to improvement of the properties and engineering potential of the cubic trialuminides. Effective modeling of the deformation behavior should contribute in a meaningful way to the future of intelligent alloy design. ***